History of Chemistry - National Science and Mathematics Leadership Program

This 18 month long project, sponsored by the Woodrow Wilson Fellowship Foundation, will provide a summer program in the History of Chemistry for 50 outstanding high school teachers selected from a national pool. The summer activities will include lectures on the ancient arts of chemistry and the evolution of the field up through the development of modern chemistry. The laboratory and demonstration portion of the project will include the classic experiments of chemistry. The best of the materials developed by the teachers in the summer will be edited and published for use in the follow-up and outreach activities the teachers will conduct during the next academic year. These outreach activities are supported by the resources provided by the Woodrow Wilson Fellowship Foundation. The matching funds for the summer portion of the project amount to about 6% of the NSF grant. The matching funds for the outreach portion of the project exceeds 300% of the NSF grant.